RUI: Development of Frame Extensions and their Application

0103762
Li

A program of research related to the application of pseudoframes for
subspaces (PFFS) and relevant interpolation techniques is proposed.
Theme 1 of the program studies the contribution of PFFSs to artifact
reduction in data/image compression. Key observations lie in the fact that
there are symmetric and compactly supported biorthogonal wavelets, but
not within an MRA (of compactly supported wavelets). It shows the "lack
of room" within the MRA subspace structure. PFFS is a tool to explore the
insight story of such a phenomenon. Theme 2 focuses on a new
construction approach of interpolatory multiresolution analysis (I-MRA).
The key observation is that an interpolatory sequence can be defined by
sampled reproducing kernel function of a subspace V of an MRA. It is
expected that such an interpolatory sequence can easily form a basis or
frame of V, giving rise to an interpolatory "interface" to the MRA, and a
construction methodology of I-MRA. Theme 3 studies applications of
PFFSs in the Sinc-type methods for interpolations and quadratures. The
motivation is to explore the advantage of fast decaying properties of
PFFSs in the Sinc-type applications. In theme 4, the P.I. expects to apply
similar interpolation techniques as described in theme 2 to study multi-
band samplings using frames and/or PFFSs as fundamental tools. The
technique of PFFSs with their flexibility is expected to play a role.

Each research topic is highly motivated by its applications in data/image
compression, sampling and interpolation for efficient numerical
implementations. PFFS is a tool to study a subspace V while "standing"
outside of it. In doing so, one is given the freedom and additional "room"
to perform tasks in V by using advanced tools not available in V. In
signal/image processing, such advanced properties of PFFS are extremely
useful because it is known that biorthogonal wavelets of finite length with
symmetry are desirable for reducing ``blocking'' and ``ringing'' effects, and
yet such biorthogonal wavelets do not reside in its dual wavelet subspace.
We believe that PFFS shall not only provide a class of biorthogonal
wavelet examples, the additional information (known from the
construction) contributed by PFFS will provide practical insight about
"blocking" and "ringing" artifacts, and thereby delivers new solutions and
enhanced signal/image compression rate and communication speed.
Other applications of PFFSs in irregular sampling (for multi-band
functions) as well as in the Sinc-type methods (for interpolation and
quadratures) are all based on applying flexible properties of PFFSs. The
expectations include enhanced practical efficiency and improved rate of
convergence. The project on interpolatory multiresolution analysis has
practical applications in data acquisition/sampling while simultaneously
performing the wavelet transform. One of the key ingredients of the study
is to build an interpolatory "interface" to a given MRA and still keep the
underlying desirable wavelet properties.